Mathematical Sciences: RUI: Geometry of Submanifolds

The principal investigator will continue his study of submanifolds of the simply connected constant curvature manifolds using the techniques of Lie sphere geometry. In particular he will attempt to give a classification of the taut and Dupin submanifolds. The investigator will also continue to involve undergraduate students in his research thus providing them with a solid background for graduate study. The simply connected constant curvature manifolds are Euclidean space, the sphere, and hyperbolic space. These manifolds are very special and serve as test cases for many questions in differential geometry. The principal investigator will attempt to classify all submanifolds or surfaces in these manifolds which are taut or rigid.